Learning Environment for Neurocomputing

This project equips a classroom with a network of PCs to teach neural systems in the undergraduate curriculum. Since the mathematics of adaptive systems are beyond the knowledge of the undergraduate, the project teaches the concepts through simulation. An undergraduate textbook integrating a hypertext and a commercial simulator is being written to explain the concepts. Students use the simulator in every lecture to comprehend the concepts of adaptation.